U.S.-Italy Research on Homogeneous C/R Manifolds

This award will support collaborative research between Prof. Hugo Rossi of the University of Utah and Prof. Allessandro Silva and Prof. Maria Welleda Baldoni-Silva, both of the Universita Degli Studi Di Trento, in Italy. The investigators intend to pursue work related to the representation theory of Lie groups, a topic of considerable importance in modern day mathematics and in theoretical physics. More specifically, previous work of Prof. Rossi and others led to concrete representations of certain semi-simple Lie groups using generalizations of holomorphic discrete series as singular representations. The collaborators intend to extend these investigations to a much larger class of representations involving discrete non-holomorphic series. The Italian researchers bring to the collaboration expertise in analysis and geometry. On the U.S. side, Prof. Rossi has been a leader in the discovery and investigation of the representation theory of Lie groups. The subject is one that relates to many branches of mathematics and physics, for example differential equations and elementary particle physics. The investigators' approach should prove useful in increasing our understanding of the connection between complex and harmonic analysis, the geometry of complex manifolds, and the representation theory of Lie groups.